Collaborative research: Hyperbolic geometry of knots and 3-manifolds

One central question left unanswered by Perelman's geometrization theorem is exactly how the combinatorial features of a 3-manifold should relate to its geometry. The principal investigators Futer and Purcell will study several aspects of this question. The first goal of this project is to use the combinatorial complexes associated a surface to give explicit estimates on the geometry of a fibered hyperbolic 3-manifold. A second, closely related, goal is to use braid presentations of a generic knot or link in order to give explicit, diagrammatic estimates on the volume of its complement. Third, the PIs will continue their joint project with Kalfagianni to relate the geometric topology of knot and link complements to quantum invariants such as the colored Jones polynomials. Finally, the investigators will continue their joint work with Cooper to understand the geometric properties of unknotting tunnels.

A 3-manifold is a space where an object such as a helicopter can move around in three distinct perpendicular directions. The universe that we inhabit is a 3-manifold whose global geometry we do not yet understand. Another rich source of examples comes from the spaces that surround different knots. Powerful theorems of Thurston, Perelman, and Mostow imply that almost every knot complement, and more generally almost every 3-manifold, has a unique hyperbolic metric. That is, there is a standard way to measure the space, so that every 2-dimensional cross-section curves like a saddle. At the moment, while we know that this standard hyperbolic metric exists, very little is known about how to relate it to easily computable quantities such as the complexity of a knot diagram. The main goal of this project is to make these relations much more concrete. One important feature of this project is that the geometric problems studied by the PIs are very visual and hands-on, with natural spin-offs into both software applications and projects for students.